REG: Acoustic Microscopy for Detecting Kissing and Slip Bonded Interfaces

9310528 Kundu A variable frequency, 10 to 100 MHz, acoustic microscope (Olympus UH-Pulse 100) will be purchased. The immediate application of this equipment will be in the detection of dangerous "kissing" and "slip" bonds at the adhesively bonded interfaces.